Travel Support for the 15th Quantum Information Processing Workshop (QIP 2012)

This award will support Quantum Information Processing Workshop to be held in Montreal, Quebec, Canada, on December 12-16, 2011, at the Mathematics Research Center at the University of Montreal. More detailed conference information for QIP 2012 may be found at http://www.crm.umontreal.ca/Quantum2011/. This workshop is the central event in the area of Quantum Computing and, more generally, Quantum Information Science. It is expected that QIP will bring together about 300 leading researchers in theoretical aspects of quantum information and computation, and play a role as one of the most important venues for the groundbreaking research in theoretical computer science. NSF support will help broaden participation at the QIP Workshop by subsidizing the travel for participants who might not otherwise attend QIP, and assist with the venue costs. Organizers aim at increasing the number of student and postdoctoral participants from the under-represented groups.